RUI: Systematics and Evolutionary History of the Mosasaurs and Their Relatives

The investigator seeks funds to study the relationships of fossil mosasauroid lizards to one another and to modern forms using anatomical characters. Results will include a better resolution of reptile phylogeny and biogeography in a large published volume of Handbuch der Palaoherpetologis.